Dissertation Research: Forest Dynamics and Quantitative Ethnobotany in Peruvian Amazonia

This project is an integrated study of forest dynamics and ethnobotany in Peruvian Amazonia, which will provide essential data for the sustained use of these highly varied forests. The investigation centers on mortality, ingrowth, and growth rates for trees and lianas >10cm d.b.h. in eight fully identified one- hectare plots established in 1983. Preliminary data indicate major between-site variation in mortality rates; these will be examined for the dependence of forest dynamics and diversity on each other and on soil and climatic variables. For thirteen one- hectare plots, the researchers will take local informants to each identified tree and liana to quantify their knowledge of plant use, and to compare such knowledge between informants. Data on plant use and population dynamics will be used to discover if the common useful species in each plot are regenerating. For selected palm species, the project will compare the effectiveness of canopy diameter, tree height, and d.b.h. as predictors of one year's fruit yield. The research will contribute directly ecological theory of forest dynamics and conservation.